Connecting Veterans to Customized Engineering Education at the University of San Diego

This award is funded under the American Recovery and Reinvestment Act of 2009 (Public Law 111-5)

This engineering education award to the University of San Diego will develop an innovative model for undergraduate engineering that is customized to the needs and strength of veterans. A particular emphasis will be on the success of women veterans. The results will also be presented on the web, at technical conferences and published in professional journals. Also the project will hold a one day workshop for the 15 universities in Southern California with engineering programs to discuss the results, to share best practices and to further promote and develop customized engineering education opportunities for veterans.
The project is expected to assist veterans' transition to civilian life and to enhance the number of students who complete engineering degrees and are ready to fill engineering jobs or start new high tech businesses.